Upgrading of the CERI Computing Services

0214206
Withers

This grant provides support for an upgrade of the computational facilities at the Center for Earthquake Research and Information (CERI), University of Memphis. Equipment to be purchased will include two SUN multi-CPU severs, a RAID system, a tape backup system, two color printers, and several individual workstations. This equipment will facilitate a multitude of CERI functions including, a role as an information center for state and local governments interested in mitigating seismic hazards surrounding the New Madrid Fault Zone, maintenance of a public outreach program on earthquake hazards, maintenance of the central and eastern U.S. seismicity database in collaboration with the USGS, and basic seismological and geodetic research and education. Several researchers at CERI including Mitch Withers, Arch Johnston, Michael Ellis, Robert Smalley and Chuck Langston will employ this equipment for research in earthquake seismology, mantle tomography and active margin plate kinematics.
***